Eleventh International Conference on Laser Spectroscopy, Hot Springs, Virginia, June 1993

9310168 Gallagher This grant will support the expenses of graduate students, postdocs, and invitees from eastern Europe who have no travel support at their disposal, to attend the Eleventh International Conference on Laser Spectroscopy held on June 13-18 at Hot Springs, Virginia. ***